Structure-Tectonics Laboratory

A structure-tectonics laboratory will provide facilities for teaching and research in structural geology. Following an introduction to non- coaxial strains using card deck exercises in a shear box, students will progress through a series of increasingly sophisticated explorations of the physics of deformation. Computer algorithms will reveal the consequences of coaxial and non-coaxial strains and the behavior of the strain parameters in progressive and multiple deformations. Digitizers and computers will facilitate data handling, permitting students to concentrate on modern analytical approaches to interpretation of the tectonic significance of their work. By adding a photomicrography component, this laboratory will make it possible to strengthen the petrology and economic geology courses as well as provide images for analysis in structural studies. The laboratory will also support the increasing interest in undergraduate research. The university will provide 50% matching funds.